MRI: Acquisition of High Performance Computer For Wichita State University

EIA-0216178
David R. Alexander
Wichita State University

MRI: Acquisition of High Performance Computer For Wichita State University

This proposal from an institution in an EPSCoR state, expanding the high performance computer in their High Performance Computing Center, enables the faculty in physics, chemistry, mechanical and aeronautical engineering, and their students to solve large-scale computational problems. Over 120 faculty, staff, and students will use this centralized facility. The National Institute would also use the machine cycles for Aviation Research (NIAR). The current facilities have been outgrown. Below follows some examples of the projects underway:

1. Integrated Computational Tool for Hypersonic Flow Simulations
2. Evaluation and Retro-fit of Fail-Safety in KC-135 Fuselage Structure
3. Design of Plasma Sprayed Coatings through Computer Simulation
4. Computational Analysis in Adhesive-Bonded Composite Joints
5. Quantum Neural Networks
6. Model Atmospheres for Cool Stars
7. Mixed-Metal Complexes: Multielectron Transfer Agents
8. Molecular Modeling of Dimeric and Polymeric Ionic Liquids